Lie Group Actions in Geometry

Abstract

Award: DMS-9971756
Principal Investigator: Wolfgang Ziller

The principal investigator plans to continue his work on various
ways in which Lie groups arise in geometry. Special emphasis will
be put on geometry and topology of cohomogeneity one manifolds,
i.e. manifolds on which a Lie group acts with one dimensional
quotient. One goal will be to show that every cohomogeneity one
manifold has a metric with non-negative sectional curvature,
which would imply that many exotic spheres admit a metric with
non-negative sectional curvature. The second goal will be to
classify cohomogeneity one manifolds with positive sectional
curvature, with the hope of finding some new examples of compact
manifolds with positive sectional curvature. For non-compact
manifolds, we will examine the converse to the Cheeger Gromoll
soul theorem, which asks which vector bundles over compact
non-negatively curved manifolds admit complete metrics with
non-negative curvature. This can be done by examining
cohomogeneity one action on the principal bundle of the vector
bundle. Further studies include the classification of primitive
subgroups of finite dimensional Lie groups and global variational
properties of the scalar curvature functional on homogeneous
spaces.

A subject of major interest in Riemannian geometry over the last
30 years has been the geometry of exotic spheres, which are
manifolds that look like spheres but on which ordinary calculus
is quite different. These objects were discovered 40 years ago by
Milnor and ever since then geometers were interested in finding a
geometric description of them where the natural local invariants
look like spheres, i.e. where the curvature is positive or
non-negative. In our project we have found many new examples of
exotic spheres where the curvature is non-negative and have
further plans for finding more such examples. A natural question
is if one can deform these to metrics with positive curvature,
one of the most intriguing open problems in global Riemannian
geometry. Our major technique is to examining symmetry
properties of such objects and related manifolds. A large group
of symmetries usually implies interesting geometric and
topological properties and has always been a key ingredient in
many mathematical subjects. We were able to construct many new
manifolds with non-negative curvature and such large symmetry
groups, which has a number of interesting applications, both in
geometry and topology.